Diagnostic E-Learning Trajectories Approach (DELTA) Applied to Rational Number Reasoning for Grades 3-8

Confrey, Berger and Wilson propose to develop a software diagnostic tool for integrating diagnostic interviews, group administered assessments, and student data in real-time so that teachers can enter and view student status information. This project would concentrate on rational number learning in grades 3-8. The design is based on a model of learning trajectories developed from existing research studies.

The diagnostic system to be developed for teachers would be used in assessing their students' knowledge and would identify difficulties in understanding five key clusters of concepts and skills in rational number reasoning. It would also investigate the diagnostic system's effects on student and teacher learning in relation to state standards, assessments, and curricular programs. The five areas include understanding: (1) multiplicative and division space; (2) fractions, ratio, proportion and rates; (3) rectangular area and volume; (4) decimals and percents; and (5) similarity and scaling.

The diagnostic measures will include diagnostic interviews collecting data using a handheld computer, two types of group-administered assessments of student progress, one set along learning trajectories for each of the five sub-constructs and one composite measurement per grade. The diagnostic system will produce computer-based progress maps, summarizing individual student and class performance and linking to state assessments.